Extraction and Analysis of Methyl Bromide in Greenland Ice Cores

ATM-9707535 Saltzman, Eric S. University of Miami Title: Extraction and Analysis of Methyl Bromide in Greenland Ice Cores Polar ice cores represent a potential archive for paleo-atmospheric methyl bromide. Such data will be useful in constraining the biogeochemical cycle of methyl bromide and in understanding its climatic sensitivity. Polar ice core measurements will also help explain recent observations regarding the distribution of methyl bromide in air extracted from polar firn. This project will consist of the extraction of air from shallow and deep Greenland ice core samples and the development techniques for the analysis of methyl bromide using gas chromatography with electron capture detection and gas chromatography with mass spectrometric detection. Developing historical records of atmospheric methyl bromide over time scales of 102-103 years would lead to new insight in to the range of natural variability in atmospheric methyl bromide concentrations and its relationship to climate change.